Acquisition of a Free Air CO2 Enrichment Instrumentation for Studying the Effects of Changes in Atmospheric CO2 Concentration & Precipitation on Mediterranean-type Ecosystems

This request is for construction of state-of-the-art instrumentation which would allow study of the effects of changes in CO2 concentration on regenerating oak woodland in southern California. There is an urgent need to develop and make available new instrumentation allowing the study of ecosystem-level responses to elevated CO2. Currently available data from chamber-based studies, while valuable, do not allow confident predictions of ecosystem-level responses. Obtaining ecosystem-level responses to elevated CO2 requires ecosystem-level manipulations of CO2. At present, Free-Air CO2 Enrichment (FACE) is the most promising technology available for such large-scale manipulations. We propose to expand our existing Free-Air CO2 Enrichment (FACE) facility, which currently consists of a single FACE ring in the California chaparral, with plans to build a second, control ring, by constructing six more rings in adjacent regenerating oak woodlands. Our FACE system allows the experimental manipulation of atmospheric CO2 concentration over relatively large areas (177 m2) of ecosystems without the use of chambers, presumably eliminating or minimizing "chamber" effects. These additional rings will each be maintained at one of five CO2 concentrations from current ambient (350 ppm) to more than twice current ambient (750 ppm) in 100 ppm increments. This expanded FACE facility will allow large collaborative studies of the effects of elevated CO2 on ecosystem source/sink status, water flux, energy balance, productivity, soil nutrient processes, and community-level processes. We anticipate this facility will attract cooperation with numerous scientists and students from around the world, because of the unique opportunities to study CO2 effects on intact ecosystems at a relatively large scale, because of the likelihood that semi-arid woody ecosystems will respond positively to CO2, and because of the international interest in semi-arid ecosvstems in ~eneral and in Med iterranean-type ecosystems in particular. Our expanded FACE facility will not only contribute to greater knowledge about the responses of semi-arid ecosystems to elevated CO2, but will also lead to better predictions of how ecosystem-level processes, including ecosystem source/sink status, may change in the future. The facility will also allow enhanced collaboration on an international scale and will result in unparalleled opportunities for student training. 11